Student Travel Support for ACM HPDC 2014

The goal of the grant is to encourage the research interests and involvement of students who
would otherwise be unlikely to attend HPDC due to a lack of funding, underrepresentation in
the field, lack of institutional tie to the HPDC community, or other reasons. The impact on
these students’ education and enthusiasm for research in high-performance computing and distributed
systems will be high. They will have the opportunity to witness first hand cutting edge research,
presentations, and discussions, an experience they would likely not otherwise.

HPDC seeks to increase student participation in the symposium as well as the field in general.
The funding will support the travel of eligible US students to the symposium. Recipients
will be able to attend the main conference and associated workshops. Travel grants will encourage
the research interests and the involvement of students in the field who are not well funded
and those who are just beginning their participation in the field or are interested in entering
it. A special effort will be made to reach out to women and under-represented minorities.